A Proposal to Construct a 1 to 5 Micron Infrared Array Camera for the NASA Infrared Telescope Facility

A 1-5 um array camera for use as a facility instrument at the NASA Infrared Telescope Facility (IRTF) at Mauna Kea will be constructed. It will use a 58x62 InSb array, providing both the mulitiplex advantages of a 3596 element array and also matching or fully exploit the excellent seeing and low background at the IRTF. Its primary features will be: 1) three quickly selectable platescales, 2) 1-3% spectral resolution or broadband filters from 1 to 5 um 3) a cooled coronagraph and 4) an imaging polarimetry mode. Using these questions. INcluded are surveys that range from a search for substellar companions around nearby stars to a search for protogalaxies. Images of bipolar outflows will help elucidate the interaction of these winds with the surrounding molecular cocoon. Imaging in the 3.3 um emission feature will serve to identify the emission mechanism and will be employed as a tracer of star formation in galaxies. An investigation of the stellar density and population distribution at the center of our own Galaxy will test suggestions of a massive black hole. Broadband and emission line maps of active galaxies will allow us to probe into heavily obscured regions with high spatial resolution. Studies of the surface geology and atmospheric structure of planets in our solar system are made possible by the wealth of molecular and solid-state features in the 1-5 um range.